Upgrading of Computer Facilities at CERI, Memphis State for Modern Seismological Research

9405689 Chiu This award provides one-half the funding required to upgrade the computer system used by the seismology research group at the Center for Earthquake Research and Information , Memphis State University. Memphis State University is committed to providing the remaining funds necessary for the equipment acquisition. The modernized computer system is needed for research projects in basic earthquake studies as well as in the Center's activities in seismic monitoring. ***